Syntactic Processing and Grammatical Intuition

This research derives from the notion that the process by which a sentence is comprehended requires several steps. One step is to retrieve the meanings of the words, and another step is to combine the meanings of the individual words into the meaning of the entire sentence. The mental procedure that performs these tasks is called the "parser", because it "parses" sentences. How the meanings of the words are combined is dictated by their inflections and by their order in the sentence. For example the sentence "Boys like girls." sounds natural because the words and their inflections form a pattern that induces the parser to combine the meanings of the words in such a way that we understand "boys" to be the agent and "girls" to be the recepient of the action "like." However, not all patterns of words and inflections are recognized by the parser. In this view, the more dissimilar a pattern is from one recognized by the parser, the more odd or deviant the string of words sounds. Hence, strings like "Boy like girl." and "Boys red girl." sound deviant. Such strings are ungrammatical; the process by which people judge whether a string in the language is natural or odd is known as grammatical intuition. Several predictions may be derived from this notion about the role of grammatical intuition in language comprehension. First, it should be possible to specify what the patterns are that the parser recognizes and to show that the perceived deviance of a word string increases with its difference from the pattern most similar to it that the parser recognizes. Also, deviant word strings should be more difficult to understand than natural ones. This research project will test these predictions. First, the parsing procedure for a subset of English will be implemented in a computer program. The specificity of the program will make it possible to derive precise predictions about grammaticality and comprehensibility for the sentences recognized by the program. Then, these predictions will be compared with measures of human performance; among them, the time college students take to make grammaticality judgments for the sentences and the time they take to comprehend the sentences. Regardless of the merits of the initial hypothesis, comparison of the performance of a computer program with human performance is likely to produce results that will improve our understanding of human language comprehension and hence that will be useful in improving the ability of computer programs to understand human language.